CAREER: Connecting Phenomenological Models to First Principles Physics

The proposed career development plan provides the PI with the means to develop a complete and balanced career that includes both research and education. Traditionally, models for dynamical systems are developed from first principles considerations which yield physical meaning to variables, parameters, and results of the model. In contrast, phenomenological models are developed directly from experimentally measured data. The objective of the research plan is to reconcile these approaches by developing analytic coordinate transformations between the two representations. The path from experimental data to physical model is a new method for understanding nonlinear systems when the physical model contains terms that are unknown, or not easily determined. The proposed research will add to our understanding of all nonlinear systems including mechanical, fluid, optical, and chemical systems. It also has engineering applications related to control, monitoring, and maintenance of experimental systems. The objectives of the education plan are curriculum development, supervision, outreach, and mentoring of students. The plan is designed to give students the educational background necessary for careers in industry and/or academia. To achieve this I will develop and teach new cross-disciplinary courses at the undergraduate and graduate level. In addition, students will participate in conferences, academic research, and research applicable to industry. The latter will grow out of a visiting scientist program involving scientists from industry and national laboratories.